Computationally Aggressive Approaches to Adaptive Design

Abstract

This project involves interdisciplinary research in which algorithmic
approaches are developed to design and analyze adaptive experiments. An
adaptive (sequential) design is one whose characteristics change in
accordance with information arising from the ongoing experiment, as
opposed to classical statistical designs where such characteristics are
set in advance and remain fixed throughout. Adaptive designs have a wide
range of application in clinical trials, destructive testing, behavioral
ecology, computer performance prediction, adaptive control, etc., where
they have the potential to reduce the expenditure of experimental
``resources'' such as time, money, or quality of life. Unfortunately,
adaptive designs are difficult to analyze and optimize. Exact analytic
solutions are rarely available, and thus, historically, such designs have
been predominantly approached via asymptotic methods and ad hoc
approximations. Computationally, adaptive designs require significant
time and space that has often made exact calculations infeasible.

This project will expand the size and scope of solvable problems by
developing new computational approaches for creating and evaluating
designs and utilizing state of the art computational facilities.
Attention is directed to problems that are important in applications,
with a major emphasis on supplying researchers greater flexibility in
modeling their statistical and cost objectives. For many of these
problems, exact optimality will be unattainable, and thus techniques for
producing near-optimal designs will also be pursued. Several of these
techniques are based on optimizing smaller or simpler problems and
extrapolating their solution structure to larger or more complex
problems. This compliments analytical, asymptotic work and provides new
insights into the structure of solutions. In other cases, a shift from
serial algorithms to parallel ones will be used to address the
additional complexity.